A Web-Accessible Knowledge Base for the Integrated Analysis and Valuation of Ecosystem Services

The objective valuation of the world's ecological systems and services and its natural capital stocks is an issue of global importance. The proposed activity applies a functional modeling approach to collected information archives. The resulting analysis tools should prove useful to a broad sector of the science and policy making community. The proposed activities would lead to a web-based, publicly accessible resource for primary data storage and subsequent modeling for use in policy development as well as scientific research.